Physics Research Experiences for Undergraduates

*** 9531688 Kossler The REU Site in the Physics Department of the College of William and Mary will be continued. Most of the undergraduate students selected for this program will join the research programs of the Department while several will join on-going research at nearby Laboratories (such as CEBAF, NASA-Langley, and the William and Mary School of Marine Science). Students, will be recruited nationally, and it is expected that most will come from other schools. ***